Evolution of Senecio and Lobelia in the East African Mountains

The mountains of East Africa provide a unique opportunity to study the mode and tempo of evolutionary events. The mountains are sufficiently numerous, tall and isolated that, given the altitudinal zonation of vegetation, they form a stratified system of habitat-islands which is amenable to mathematical analysis and the formulation of testable predictions concerning the adaptive radiation of plants. The giant senecios (Senecio ser. Arborei) and the giant lobelias (Lobelia sect. Rhynchopetalum) have undergone sufficient geographic and altitudinal radiation (resulting in much endemism and convergent evolution) to allow assessment and comparison of their evolutionary responses to the physical characteristics of the mountain system. These plants also display several unusual morphological features associated with the giant-rosette life-form, namely (1) daily opening and closing of the massive terminal leaf-rosettes, (2) retention of an insulating jacket of old, dead leaves, (3) greatly enlarged pith volume which provides an internal reservoir of water, and (4) secretion of polysaccharides that affect the freezing characteristics of water impounded by the leaf-rosettes and the hollow inflorescences of Lobelia. The purpose of research by Dr. Palmer and Mr. Knox is to reconstruct the evolutionary histories of these two groups. Phylogenetic hypotheses based on restriction-site variation in chloroplast and nuclear ribosomal DNA will be used to test the predictions derived from mathematical analysis of the mountain system and to interpret the patterns in adaptive morphology. This research will provide insight into the frequency of geographic versus altitudinal radiation, the relative importance of migration versus long-distance dispersal, the extent of evolutionary convergence, the rate of evolutionary divergence, and several points of particular taxonomic interest. If the pattern of geographic radiation for Senecio or Lobelia corresponds to the sequence of volcanic mountain formation, then the established geochronology may provide an independent line of evidence for evaluating the operation of a molecular clock.